Japan JSPS Program: Imaging and Analysis of CorticocorticalProjection Development in Organotypic Slice Cultures

9600310 Ruthazer This award supports a 12 month Japan Society for the Promotion of Science (JSPS) Postdoctoral Fellowship for Dr. Edward S. Ruthazer at the University of Osaka, Osaka, Japan. Dr. Ruthazer will work with Dr. Nobuhiko Yamamoto, Associate Professor in the Department of Engineering, on research project entitled, "Imaging and Analysis of Cortico-cortical Projection Development in Organotypic Slice Cultures" The proposed research will develop and apply an in vitro model of early corticocortical connection formation using a novel callosum-intact cortical slice culture. The research will examine the axon pathfinding and branching process in living cultures made from thick (but optically penetrable) brain slices that will include both cortical hemispheres and the interconnecting callosal tract. Single axons will be labeled using vital, non-toxic fluorescent dyes and then observed using scanning laser confocal microscopy over a period of hours to days as they grow through their normal environment and extend branches to contact the target neurons in the other hemisphere. In this way, it will be possible to determine at exactly which locations axon turning and branching occurs, and whether the development involves direct and selective growth toward target sites or a combined process of exuberant branching followed by selective retraction of incorrect branches. Once the precise series of developmental events has been determined, direct physical, pharmacological, and eventually genetic manipulations will be used to analyze the specific biochemical interactions that contribute to each step of the developmental process. ***